Analysis of Spectral Invariants on Manifolds

Proposal 0302647
P.I.: Kate Okikiolu (UCSD)

Analysis of Spectral Invariants on Manifolds: Abstract

Associated to a Riemannian manifold, there exist natural geometric
operators such as the Laplace-Beltami operator, and one can study the
relationship between the geometry of the manifold and
the spectra of these operators. (A famous question on this theme is
``can you hear the shape of a drum?".) This leads to the study of
spectral invariants of geometric operators, which
are geometric invariants of the manifold. The
zeta invariants of geometric elliptic operators form a family of
such spectral invariants which includes in particular the
determinant of the Laplacian and certain integrated local
invariants such as the Yamabe functional.
It is well known that among metrics of a given
volume and conformal class, the Yamabe functional is extremized at
a metric of constant scalar curvature, and the same is true for
the determinant of the Laplacian on surfaces. This raises many
questions regarding how the determinant of the Laplacian behaves
in higher dimensions, what happens for different types of
Laplacian, and how other zeta invariants behave. There has
already been progress on several of these questions, the
motivation being both to understand the behavior of specific zeta
invariants and to investigate possible applications of zeta
invariants to geometry. Okikiolu proposes to study a number of
issues related to the existence, uniqueness and behavior of
critical metrics for the determinant of the Laplacian and other
zeta invariants, including questions concerning global upper or
lower bounds, gradient flow, behavior across conformal classes,
behavior of model problems, and development of the basic analytic
theory of zeta invariants. In addition, Okikiolu proposes to work
on related questions concerning spectral invariants of Toeplitz
operators on manifolds, and in a somewhat different direction, on
the problem of extending the Verlinde formulas from quantum field
theory.

Understanding the relationship between the
geometry of a space and the spectra of natural geometric
differential operators on the space is a problem which arises in a
number of branches of science. Individual eigenvalues are hard to
analyze and often the geometry of a space is more clearly
reflected by certain weighted averages of the eigenvalues such as
zeta invariants. In particular, determinants of Laplacians on
manifolds have been studied and applied in several fields of
mathematics and physics including topology, quantum field theory,
string theory, algebraic geometry, and conformal geometry. The
research proposed here should lead to a more complete mathematical
theory of zeta invariants for geometrical and physical
applications.